Fracture Behavior of Porous Ceramics Substrates

9704281 Green Ceramics with moderate amounts of porosity are an important class of materials that can make a significant impact in applications in which their permeability plays a key role. This attribute, in addition to their chemical and thermal stability, makes them suitable as catalytic supports, particulate filters, membranes for micro- and ultrafiltration and as integrated catalytic reactors. In such situations, however, the poor mechanical performance of these materials is likely to be a limiting factor in the full exploitation and development of these technologies. In particular, there is concern over the strength, fracture toughness and thermal shock resistance. Unfortunately, little is understood about the factors that control fracture in these porous materials and thus, there is a need for a scientific study that tackles this area in a fundamental and generic way. This is particularly important for the development of materials with improved mechanical reliability. In the proposed work, the objectives are to explore some new techniques for processing porous materials and to identify the microstructural factors that control the strength and fracture toughness of these materials. The technical approach will involve 1) exploring new processing techniques, 2) quantifying the microstructure of the resulting porous materials, particularly contiguity and pore structure, 3) measuring a set of mechanical properties (elastic constants, fracture toughness and strength) and 4) evaluating or devising appropriate theoretical models that link the pore structure to the mechanical behavior. %%%% Ceramics with moderate amounts of porosity are an important class of materials that can make a significant impact in applications in which their permeability plays a key role. This attribute, in addition to their chemical and thermal stability, makes them suitable as catalytic supports, particulate filters, membranes for micro- and ultrafiltration and as integrated cataly tic reactors. In such situations, however, the poor mechanical performance of these materials is likely to be a limiting factor in the full exploitation and development of these technologies. In particular, there is concern over the strength, fracture toughness and thermal shock resistance. Unfortunately, little is understood about the factors that control fracture in these porous materials and thus, there is a need for a scientific study that tackles this area in a fundamental and generic way. This is particularly important for the development of materials with improved mechanical reliability. In the proposed work, the objectives are to explore some new techniques for processing porous materials and to identify the microstructural factors that control the strength and fracture toughness of these materials. ***